Industry/University Cooperative Research Center for Material Handling - Evaluator Support

9424107 Pence This award provides funding to study the industry/university interactions occurring in Georgia Institute of Technology's Industry/University Cooperative Research Center for Material Handling. The P.I. has a well-established reputation and wealthy experiences in performing the proposed tasks. The Program manager recommends Georgia Institute of Technology be awarded $8,000 for the first year of a three-year continuing award.